RUI: Spectroscopic Probing of Peptide Binding Calmodulin Surface

The goal of this project is to identify and structurally characterize the region in calmodulin (CaM) where amphiphilic peptides bind in solution. Structural flexibility and conformational adaptation of the CaM molecule in response to ligand binding will be studied. Steady-state and dynamic fluorescence spectroscopic techniques will be used. CaM is an acidic protein, which, in its Ca(II)-complexed form can bind and activate several physiologically important enzymes. Some peptides which are capable of forming basic, amphiphilic helices, have very high Ca(II)-dependent affinities for CaM and compete with enzymes for binding. Thus, the CaM-amphiphilic peptide interface provides an attractive structural model for studying functionally important interactions of CaM with enzymes.